U.S.-Hungary Project Development Visit: Succession and Restoration Ecology

The primary objective of this US-Hungary Project Development Visit by Dr. Susan Glenn of the University of Oklahoma is to support development of a proposal to study succession and restoration ecology. The US researcher proposes to visit Hungary 1) to review and to identify study sites in Hungary; 2) to become more familiar with research being conducted by Hungarian scientists; 3) to collaborate in designing experiments; 4) to better acquaint the Hungarian scientists with western-style proposals; and 5) to visit the Institute of Ecology and Botany. The researchers will plan the investigation of the effects of small manipulations on successional pathways. The researchers plan to set up a series of parallel experiments in restoration in Oklahoma, Kansas and Hungary and to analyze successional and non-successional community dynamics on Konza Prairie. The results of such research may aid in devising methods to increase the rate of succession and to direct the successional pathway. This project in the field of ecology fulfills the program objective of facilitating scientific contact for the purpose of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents in areas of strong mutual interest and competence.